"Double TNT" - Targeting New Teachers and Teaching by Novel Techniques

Using minority and female junior and senior high school students to work with elementary teachers in presenting science activities in their elementary classes--"Teaching by New Techniques"--, "Double TNT" will both seek to interest the elementary students, particularly minorities and females, in science and to interest the older students in the possibility of careers in teaching--Targeting New Teachers. The junior and senior high school students will come from The Science Academy of Austin, a unit of the Austin (TX) Independent School District sponsored by the District and a consortium of local industries. They will work with teachers at both levels to develop science teaching units that they can present at the elementary level, both in person and via videotape, thereby serving as role models. They will also serve as mentors to sixth grade students who visit the Science Academy. The Science Academy will also work directly with elementary teachers in teacher enhancement programs and will actively seek to interest minority and female elementary students to apply for the Science Academy. Cost sharing by the partners is estimated to total at least 75% of the NSF funding.